Socialization and Temperament in the Development of Conscience in Early Childhood

ABSTRACT The development of conscience is an ultimate hallmark and goal of socialization. Conscience assures that we adhere to standards of conduct and restrain antisocial impulses even in the absence of surveillance. In the second year of life, parents begin to lay foundations for children's conscience by setting and enforcing standards of desired behavior. Different child rearing patterns have been associated with varying outcomes in children's conscience development. However, children's individual temperamental characteristics, such as vulnerability to anxiety and fearfulness, and impulsivity and inhibitory control may affect their ability to experience guilt and remorse and the capacity to suppress forbidden impulses. Thus, they may be strongly related to aspects of conscience development, and they may also moderate the effects of parental socialization. Nevertheless, individual differences have been almost entirely neglected in the developmental research on conscience. This short term cross-sectional/follow-up study will examine maternal socialization and child temperament as contributors to the early formation of conscience at two points critical for its development; at Time 1, at 29.40 months (recently proposed as the period of the emergence of the "moral self") and at Time 2, at 45-55 months (on the verge of the transition to broad social systems, when internal standards of conduct take on a particular developmental significance). Specifically, mothers' disciplinary styles, children's fearfulness/anxiety and impulsivity/inhibitory control, and apsects of children's conscience development will be measured at both times of assessment with a rich combination of methods; naturalistic behavioral observations in multiple context, standardized laboratory procedures, parental reports, and semi-projective measures. The study will provide unique insights into the complex interplay of socialization and temperament in the early development of conscience.